Structure, Evolutionary Significance, and Developmental Expression of the Sea Urchin Bindin Gene

The species specificity of fertilization between the sea urchins Strongylocentrotus purpuratus and S. franciscanus is controlled by the specific interaction of a sperm acrosomal protein, bindin, with its receptor. This interaction is currently responsible for maintaining the species-isolating barrier between these two species, whose geographic ranges and reproductive seasons overlap. Comparisons of complete protein sequences from cDNA clones for S. purpuratus and S. franciscanus are being used to define protein sequences that have changed between the two species and may therefore be responsible for the species-specific binding. Synthetic peptides covering these regions will be used in in vitro binding assays and as competitors in fertilization in order to determine which altered sequences are responsible for the change in binding activity. Analysis of genomic clones from these two species and comparison to a third species, Lytechinus variegatus, will show the mechanism and direction of change for the important sequences. The bindin cDNA clones are also being used as a marker for testis development in juvenile sea urchins. The coordinate control of bindin and another testis specific gene, testis-specific sperm histone H2B, will be studied by comparing their promoter sequences and by determining the extent to which they share promoter DNA binding proteins. %%% In nature species are maintained due to infertility across species. Dr. Davidson has shown that the sperm protein is responsible for this barrier between two species of sea urchins who share a habitat. They can not interbreed due to the inability of the sperm to fertilize the egg of the other species and this inability is due to a species specific sperm protein. Dr. Davidson proposes a molecular investigation of this protein from the two species to determine precisely what is responsible for the incompatibility. The two species are close relatives and this protein has apparently diverged during evolution. The study of the molecular defect here will provide information that will lead to knowledge of the normal process of sperm-egg adhesion, a key event in fertilization in all species.